Mathematical Tools for Non-invasive Spectroscopic Monitoring of Blood Chemistry

The investigator and his colleagues undertake a coordinated
effort to bring to bear ideas from analysis, geometry, and
statistics on the problem of analysing spectroscopic data in high
dimensions. A major challenge confronting the analytical chemist
involves the organization and manipulation of massive amounts of
data, both measured and computed. Recent work indicates that
special geometric structures allow for efficient transcription
and modeling of the relation between spectral measurements and
material composition. The investigators develop tools to identify
such structures and to automate the process of analysis and
feature extraction. In particular, the investigators concentrate
on near-infrared spectra of blood, with the goal being to
estimate concentrations of various blood analytes from
noninvasive spectrometric measurements. The multidisciplinary
team undertakes a coherent approach in which various aspects of
chemical analysis, blood pathology, and sensor engineering
interact with mathematical analytic tools. They adapt and extend
computational software to the particular geometry of chemical
spectra, for which the data manifolds need to be parametrized by
the concentrations of various constituent materials. To achieve
such parametrizations, they exploit mathematical tools for local
multiscale descriptions of data together with clustering
techniques that occur naturally in the context of data analysis
for expression profiles of gene arrays.
Shining a light on the skin allows one to get spectral data
about the blood beneath the skin and its chemical components.
Hence noninvasive blood analysis is possible, if only one could
make sense of the data. The investigator and his colleagues apply
a range of mathematical and statistical ideas to build tools that
can make sense of such data. There are important medical payoffs
because of the role blood chemistry plays in health. Moreover,
the underlying mathematical problem, to find efficient ways to
make sense of enormous volumes of high-dimensional data, arises
across science and engineering, so the potential impact of the
project is even wider. The project provides interdisciplinary
research and training opportunities for students and postdocs.